Community Center for Archaeal and Extremophile Genome Research

The University of California-Santa Cruz is awarded a grant to develop a model organism database and genome browser for all species in Archaea. The resource will be based on an existing browser and database system from the UCSC Human Genome Browser project. Improvements will include manual caution of relevant literature annotations, integration of all published functional genomics data, and Wiki-based tools for community-based gene annotation and communication.

Archaea is the third, most recently discovered domain of life on Earth. These organisms hold the greatest potential for new biological discovery. A major impediment to fully utilizing the 50 completed archaeal genomes is lack of proper annotation of genes. This project will improve annotation for all genes and keep information current via a combination of automated and manual curation, and archaeal research community involvement. Integration of high-throughput functional data within the browser provides a powerful comparative tool to detect inconsistencies in complex data, and to help understand evolution of transcriptional regulation. Thousands of genes with no useful annotation will be given new functional assignments based on functional genomic data, operon association, predicted orthologs, and new primary literature associations.